Message Passing Interface Forum

This research addresses the formation of a standard for performing point-to-point message passing between pairs of processes in a MIMD distributed memory computing systems. A small set of typed message passing routines form the core of the standard, and are augmented by support for features such as noncontiguous messages, communication contexts, and process groups. The proposed standard activity is called Message Passing Interface Forum. (MPI). The main advantages of establishing a message passing standard are portability and ease-of-use. In a distributed memory communication environment in which the higher level routines and/or abstractions are built upon lower level message passing routines the benefits of standardization are particularly apparent. Furthermore, the definition of a message passing standard, such as that proposed here, provides vendors with a clearly defined base set of routines that they can implement efficiently, or in some cases provide hardware support for, thereby enhancing scalability.